Group Travel for US Participants in XXV International Congress of Psychology, Brussels, Belgium (July 19-24, 1992)

This project will support the air travel of a small number of US participants in the XXV International Congress of Psychology to be held in Brussels, Belgium, July 19-24, 1992. The congress is the quadrennial meeting of the International Union of Psychological Sciences (IUPsyS) of ICSU. Arranged by the Belgian Psychological Society, the meeting provides the major opportunity for international scientific exchange among the world's leading psychological scientists, and for young scholars to interact with leading scientists from around the world.